Nonlinear Functional Analysis and Partial Differential Equations; U.S.-Italy Program

This award supports a program of research exchanges by leading mathematicians from the U.S. and Italy, under the direction of Prof. Louis Nirenberg of the Courant Institute of Mathematical Sciences and Prof. Umberto Mosco of the University of Rome. The aim is to continue excellent scientific contacts already established and to broaden them with short research visits, primarily to centers in Rome, Pisa, Florence, Pavia, Milan, Trento, Bologna and Trieste. These research visits will focus on the theory and application of nonlinear differential equations with particular emphasis on: 1) fully nonlinear second order elliptic partial differential equations; 2) the use of capacitory methods in the study of regularity and variational stability in elliptic equations and variational inequalities; 3) periodic solutions of Hamiltonian systems and of other problems involving nonlinear vibrations; and 4) the further development of techniques from nonlinear functional analysis, calculus of variations and algebraic topology to attack nonlinear problems. This award adds an international component to currently supported work of Prof. Nirenberg. The quality of the participants is very high and the topics are at the forefront of nonlinear analysis. Furthermore, many of the topics arise from applications to mathematical physics, nerve conduction problems, elasticity, fluid dynamics, and consequently have deep and substantive connections to other scientific fields.